Response Properties of Central Olfactory Neurons

Mellon 9319406 Of the five major senses, olfaction has the least understood central integrative mechanisms for analyzing olfactory stimuli. Recent advances in understanding peripheral olfactory coding have come from crustaceans, where the antenna of lobsters, crayfish and crabs have proven valuable simple preparations. This project examines central coding, using electrophysiological recording in the crayfish olfactory system to determine the stimulus/response characteristics of individual nerve cells. Central cells called interneurons will be studied in a part of the brain called the protocerebrum, which shows a sophisticated anatomical structuring very like that in part of the mammalian olfactory system. Responses of these interneurons will be compared to responses from the peripheral primary neurons that converge on the interneurons, using stimuli of single amino acid compounds and of particular mixtures with systematically quantified differences. These studies will give information on how coded olfactory information is handled, and which stimulus features are attended to by neurons at this higher level in the olfactory system. The effects of temporal changes in stimulus delivery will be looked at to determine what role pulsatile stimuli and adaptation may play in reception. Responses during the antennular flicking behavior, which may be analogous to sniffing, will be quantified to see whether flicking modifies the neuronal sensitivity. Results from this work on this model system will have an impact on chemosensory neuroscience in general, will increase our understanding of neural coding in sensory systems, and may also be important for understanding chemically-cued feeding and mating behavior of marine and aquatic crustaceans with potential commercial impact. ***